Cataloging and Conservation of the Stanford-Meyer Osteopathology Collection

The San Diego Museum of Man will complete the cataloging and conservation of the Stanford-Meyer Osteopathology Collection of human skeletal remains. Prior support for curation of these materials has been provided by the National Science Foundation. The collection consists of human skeletal specimens exhibiting disease, trauma, and morphological variation and includes nearly 3,500 specimens from more than 1,500 individuals. It was made in the early part of this century by Arthur W. Meyer, M.D., of Stanford University and is especially important because it predates the introduction of antibiotics. Therefore, materials include evidence of diseases which are rare in present day populations. An osteologist/paleopathologist and a forensic anthropologist will assist in the cataloging and conservation of the materials. Descriptions will be made of the remaining parts of the collection and databases selected for collections management. Co-mingled specimens will be sorted and fragile specimens conserved. These reference materials are extremely important because they derive from known individuals, many with extensive medical records. Therefore, control is excellent. The specimens can be used for both teaching and research purposes and serve as a starting point for the analysis of older materials. Because the skeletal system provides a fairly permanent record of the diseases and insults to an individual, through the study of such specimens, it is possible to examine the effects of such variables as nutrition, crowding, and disease at different ages in an individual's life on such dependent factors as growth, development, and morbidity. This research is important because it can help us understand the normal processes of human growth and development as well as the effects of specific diseases.